Research-Based Design Framework for Mathematics and Science Teacher Induction

Under this grant, the researchers will create a detailed framework for designing teacher induction programs that emphasize learning about mathematics and science teaching. The framework will be derived from the profiling of 25 induction programs for middle and high school teachers. Based on this profile, seven to eight intensive case studies will be conducted, collecting data on context, content, effects on teacher behavior and on student outcomes. The set of programs selected for study will represent a variety of induction strategies, activities and providers.